A Pilot Project to Adapt and Evaluate the Calibrated Peer Review Tool for the Earth sciences

This pilot project involves the design and assessment of one prototype Calibrated Peer Review assignment on earthquakes and to evaluate its impact on student learning in two sections of Geology 100 at Iowa State Unversity in Fall 2002. Calibrated Peer Review (CPR) is a computer-assisted essay writing, reading and assessment tool established by a consortium of six institutions in California and is currently being used by more than one hundred chemistry departments at colleges and universities nationwide. CPR is a web-based tool that facilitates student learning by writing about significant topics in a course. This prototype, if successful, will lead to the creation of a library of CPR assignments for the Earth sciences.